SGER: Resource Management in Secure Open Wireless Networks

Next generation wireless networks will focus on the open
wireless architecture platform. In such a network, heterogeneous
wireless systems will be integrated to provide reliable,
high-bandwidth, on-demand services with performance guarantees
to a variety of users with di®erent tra±c characteristics,
security requirement, and hardware capabilities. This SGER
project is exploring three key issues in the resource management
of such systems. First, utility-based model is investigated to
deal with access selection and vertical handover decisions in
which policies governing the network operations are embodied
in the design of marginal utility functions. Second, a
utility-based QoS enabling scheduling model is developed in
which the utility at a given moment can re°ect the received
productivity of the system in the long term run and scheduling
decisions to deal with multiple QoS parameters are made using
reinforcement learning. Third, an integrated model that measures
security overheads experienced by security-critical tasks and is
applicable to the security-aware admission control is developed.
The proposed research is focused on the development of solutions
that are critical for next generation wireless and mobile
communication networking systems. Written reports of research
findings will be disseminated through academic publications.